Mathematical Sciences: Harmonic Analysis and Special Functions

9401322 Richards Richards will continue his research on hypergeometric functions defined on matrix spaces and symmetric cones, with special attention to be paid to developing the theory of operator-valued hypergeometric functions on symmetric cones. This research is in the area of analysis on symmetric spaces. The main objective is to develop a theory of special functions similar to the classical case of special functions defined on domains in complex n-dimensional space. ***